Research Experiences for Undergraduates at University of Kentucky

Dr. Sylvia Daunert and other members of the Chemistry Department of University of Kentucky are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1993-5, ten undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover the traditional areas of chemistry-analytical, inorganic, organic, physical and biochemistry. A unique feature of this program is the selection of participants from colleges and universities in Kentucky and neighboring states.